Acquisition of a Videomicroscopy Image Processing System

The proposal involves the acquisition of a videomicroscopy and image analysis system for a group of neurobiolgists and cell biologists whose work focuses on neuronal development and cell adhesion and motility. The components to be acquired were chosen to function together in different flexible combinations to serve the varied needs of the individual research projects. The capabilities include: 1) low light level observation and time lapse analysis of growth and plasticity of living cells using phase contrast, DIC or fluorescent staining, 2) calcium mapping in live neurons and growth cones using the fura-2 fluorescence ratio image method including representation in pseudo color images, 3) recombining of images of objects present in more than one section (in sectioned material) or optical plane of focus (in whole mounts) and generating single clear images of entire 3-D structures, 4) superimposition of images of double (or triple) fluorescent staining, obtained at different wavelengths, in order to better compare the colocalization of immunostaining in cellular structures, 5) contrast enhancement and subtraction of background mottle to permit DIC-video images in real-time, 6) provisions for mass storage, retrieval and printing of the images and the production of short time-lapse videotapes for demonstrations and seminars.